U.S.-France Cooperative Research: New Directions for Artificially Structured Magnetic Materials

This three-year award for U.S.-France cooperative research in condensed matter physics involves the research groups of Robert L. Stamps at Ohio State University and Kamel Ounadjela at the Institute for the Physics and Chemistry of Materials in Strasbourg, France. The award provides travel support and living expenses to Dr. Stamps and his graduate student. The objective of the research is to investigate the magnetic interactions and magnetization processes in thin magnetic multilayer films, wires and patterned arrays of submicron and nanometer dimensions. The project takes advantage of French expertise in the growth of magnetic films. This is complemented by U.S. expertise in the properties of thin films and will advance understanding of magnetic materials.